Computer Assisted, Interactive Undergraduate Mathematics

This project is reforming and enhancing the learning of mathematics in line with educational research and current nationwide calls for changes in pedagogy in mathematics education. Technology is being utilized in mathematics courses to teach techniques such as collaborative learning, learning by discovery, and concept exploration. The project is adapting and implementing technology based on methods from NSF Instrumentation and Laboratory Improvement (ILI) projects at SUNY A&T Cobleskill in New York, Shoreline Community College in Washington, and Queensborough Community College in New York. The mathematics department is allocating one classroom for a mathematics laboratory to run software including Derive and Scientific Notebook with Maple. All calculus classes are meeting in this classroom along with a select subset of classes in Math for Elementary Teachers, Intermediate Algebra, and Precalculus. On-line quizzes are being prepared. As a two-year college, students are being prepared for transfer to four-year colleges and universities as well as for life-long learning. The mathematics laboratory is fostering motivation, innovation, and learning.